Genetic Dissection of Ovarian Cell Lineage in Drosophila

The proposed project involves analysis of the process of cell-type determination in the ovary. The approach is to be genetic: ask the organism what functions it considers important by identifying mutations that are defective in the process, analyze the defect in the mutants, and then deduce the role of the wild-type allele in insuring the normal process. Analysis will involve both light microscopy and serial section reconstruction electron microscopy. Mutations that are excellent candidates for defects in this process are already in hand, and analysis of one locus has been completed (egalitarian, a defect in oocyte-nurse cell determination); analysis of additional loci has begun. The process is complex, so for each locus a range of morphic types of alleles (as defined relative to a deficiency) will be studied to define the primary defect and the range of secondary defects; additional mutant alleles will be induced as needed after the "type" allele has been examined. The level of residual function that will make analysis of a given locus possible will be a function of the locus itself. Once several different loci are known, pathway analysis will begin: double-mutant combinations will be examined by both light and EM. At this point, there will be predictions of the types of interactions (dependent, independent, or interactive pathways), but the actual phenotype of the double-mutant combinations will both guide assessment of the kinds of pathways present in the process and further refine the deductions of function of the specific wild-type alleles. Moreover, once several mutations have been identified that appear to be in the same or interacting pathways, additional recessive mutations in those pathways may be isolatable as dominant enhancers of multiple heterozygotes of existing mutants. Suppressors (second-site "revertants") will also be sought. These additional loci will then be studied, first as independent mutants and then in interactions. In the process of development, the original single cell, the zygote, is totipotent but as cell division occurs, cells differentiate to form specific cell types. How this process is regulated at the molecular level is not understood for any cell types. Dr. Carpenter has chosen to use ovarian cell types for this study, but the information obtained will be insightful and add to our generalized concept of differentiation.